Collaborative EAGER project: Early Career Seismic Chief Scientist Training Cruise

Results of the recent UNOLS Marine Seismic Questionnaire (MSQ) demonstrate the value of an early
career scientist Multi-Channel Seismic (MCS) chief scientist training cruise. Proposed, and awarded, are funds to carry out
a MCS training program that includes 4 days of seismic data acquisition to increase the number of early career scientists
experienced in marine seismology and to demonstrate the value of the Scripps Institution of
Oceanography portable MCS system, a UNOLS facility. The training program consists of three parts: (i)
Webinars prior to the cruise to expose the participants to the fundamentals of active source marine
seismology, to provide the scientific background needed to plan the upcoming survey effectively, and to
introduce the participants to open source processing and interpretation tools. The Webinars will include
Proposal Writing and Data Management training. Applications will be solicited, including a maximum 2-
page science proposal, after the webinar series. Once selected, participants will discuss their cruise plans
with the PI team prior to the pre-cruise workshop via several telepresence meetings; then, during a 2-day
workshop immediately before the cruise, the participants will finalize the cruise plan under the PI team's
guidance; (ii) A training cruise. Each participant will contribute to the entire team walking off the ship
with post-stack time migrated data, as well as writing a cruise report collaboratively; and (iii) a 2-day data
interpretation workshop with computer-based visualization software.
Intellectual Merit:
The proposed survey regions are on the active continental margin of the west coast of the United States,
where a variety of sedimentary and tectonic settings are available, providing targets of interest to a wide
range of participants. At the extended continental margin off the coast of Oregon, the seismic reflection
profiles acquired, processed, and archived from this cruise can be used to image the subducting plate and
the Astoria Fan, as well as accretionary ridges hosting gas hydrate and pockets of hemipelagic sediment
containing paleo-oceanographic information. Targets have implications for addressing important
societally relevant questions, such as earthquake hazards and paleoclimate records in basins. There will
also be potential for using seismic techniques to reveal real-time, fine-scale within the water column
around upwelling regions of the northeastern Pacific Ocean boundaries. Open access data from this cruise
can augment on-going and near-future science conducted by a broader community.
Broader Impacts:
For this novel, transformative project, early-career scientists will be selected from a wide applicant pool.
This science mission will be advertised on the MSQ and other geoscience listservs, and encouraged participations
of underrepresented minorities and women by promoting the opportunity via organizations such as
Society for Advancement of Chicanos/Hispanics and Native Americans in Scienceand Earth Science
Women's Network. Participants will gain not only first-hand seismic cruise experience but also
experience communicating their research to non-scientists. The proposed activities will be used to inform
the public about the unique and essential contributions of seismic research toward solving a variety of
important societal challenges. Results will be shared on the AGU's GeoSpace blog and Instagram
account. Important deliverables from the pre-cruise and onboard activities to the community are to
establish and provide "cookbook" of the open source software used during this cruise; and make the data
acquired from the cruise open immediately as soon as they are archived at the publically accessible
archives. A post-cruise survey will be conducted in collaboration with the UNOLS office to obtain
feedback from the participants and encourage the participants to write NSF proposals, the number of
which will be the direct and ultimate measurement of the success of this ECS.